Conference: Mentoring Innovation Network: Building Conference-Based Mentoring Infrastructure for Early-Career Development in Paleontology

Professional conferences are where students and early-career scientists build networks, learn the norms of their field, and discover career paths. These opportunities are, however, often informal, inconsistently available, and financially prohibitive. This project will engage the Paleontological Society in redesigning aspects of its annual conference to more systematically support mentoring and career development. The project will bring together students, early-career scientists, museum and collections professionals, industry geoscientists, and society leaders to design new ways of connecting mentors with mentees, sharing career knowledge, and building long-term professional networks and meeting routines for career development. A strong, well-trained geoscience workforce is needed to address pressing challenges such as natural hazards, resource management, and environmental resilience. By producing reusable mentoring tools, training materials, guidance and systems for sustaining these practices, the project aims not only to strengthen mentoring for career and workforce development in the Paleontological Society, but also to inform systems and practices in STEM professional societies more broadly.

Building on prior research on mentoring within GSA, this project takes a design-based implementation research approach to better understanding and designing professional societies as developmental infrastructures for the STEM workforce. Work is organized around the testable conjecture that integrating mentor/mentee preparation, cross-sector interaction, and cyclical feedback into routine conference activities and structures will enhance early-career professional identity, workforce alignment, and developmental professional networks. The research team and Society members will iteratively codesign, test, and refine mentor workshops, mentee orientations, matching protocols, cross-sector workforce engagement activities and small-grant-supported codesign projects. Learning and change will be examined across personal, interpersonal, and institutional/community planes of development. Surveys, interviews, focus groups, observations, conference artifacts, participation records, and codesigned materials will be analyzed to assess implementation, participant development, network formation, value creation, and adoption of sustainable society routines. Products and findings will include mentor- and mentee-oriented open educational resources and activities, matching protocols, facilitation and implementation guidance, evaluation instruments, and peer-reviewed reports of empirical findings. By working across geoscience education, learning sciences, and organization development perspectives, the project will advance a holistic model of mentoring as workforce-development infrastructure for STEM professional societies.